CEDAR: Ionospheric Effects of Rapid Solar XUV Variations

The investigators will study the ionospheric response to short-term variations in the solar spectrum; particularly those associated with solar flares. Solar radiation in the soft X-ray and extreme ultraviolet spectral regions is the source of the non-auroral ionosphere. Variations in the solar flux may perturb the ionospheric morphology and behavior. The study use theoretical models and incoherent scatter radar measurements to investigate the effects on electron density, ion composition, minor species concentrations, and airglow. The investigators will also use Faraday rotation measurements of very high frequency signals from geostationary satellites to compare with models of the seasonal and latitudinal asymmetries in total electron content during ionospheric disturbances.